Learning and Intelligent Systems: Learning Binaurally-Directed Movement

9720334 Krishnaprasad The goal of this research project is to investigate time coding in the central nervous system, specifically the auditory system of the barn owl, the early development of such codes, the learning of associated maps, and the exploitation of such sound codes and maps in source localization and sound separation. The approach consists of electrophysiological and anatomical study, coupled with mathematical modeling of neural circuitry, the rigorous investigation of the structure and performance of relevant learning algorithms and the creation of an experimental robotic testbed. This testbed, a binaural head, is intended to be capable of orienting itself to sound sources in complex acoustic environments through pure auditory servoing, by utilizing the development of control architectures capable of learning maps of the auditory space of the robot, and drawing upon an evolving understanding of barn owl auditory system. The results of this research will provide insights into the design of novel roles for auditory sensing, interpretation and discrimination in autonomous robotic systems. This research could lead to applications in hands-free human-machine communications in acoustically cluttered environments and in monitoring complex environments such as highly automated manufacturing plants.